Foliated Rigidity and Dynamics of Space-Time

Proposal: DMS-0072165
PI Scot Adams

The study of Lorentz manifolds may be motivated by physical
considerations, since the Einstein field equations determine Lorentz
metrics on space-time. Following F.~Klein's Erlanger program, one
method of approaching a geometric object is to study its group of
isometries, and it has long been known that the isometry group of a
Lorentz manifold is a Lie group. Moreover, any Lie group acts on
itself (by left translation) preserving any left-invariant Lorentz
metric. However, as originally noticed by R.~Zimmer, M.~Gromov, and
N.~Kowalsky, if one requires even a small amount of complication to
the dynamics, then the list of Lie groups admitting a Lorentz action
becomes quite restricted. My work over the last few years has focused
on quantifying exactly which connected Lie groups admit a complicated
action by isometries of a connected Lorentz manifold. As the
definition of ``complicated'' varies, the answer varies, and I intend
to look at a few more of these variations over the coming years. In
particular, I would like to determine the collection of connected,
noncompact, simple Lie groups admitting a locally faithful, nontame,
isometric action on a connected Lorentz manifold. I believe it should
be true that any such group either has infinite center or is locally
isomorphic to the Lie group of 2 by 2 real unimodular matrices.

A Lorentz manifold, or ``space-time'' is one of the basic object of
general relativity. Some of these objects have many symmetries, while
most have none at all. Fix a space-time having a large collection of
symmetries. For any point in this space-time, if we move it around by
all the symmetries under consideration, the collection of image points
so obtained is called the ``orbit'' of the point. A number of
researchers have noticed that it is difficult to construct a
space-time with chaotic orbits, by which we mean, broadly speaking,
that some orbits repeatedly return (or nearly return) to the
same place. There are, in fact, many ways to define precisely the word
chaotic, and this means that a number of different theorems have been
obtained. I intend to continue developing results along these lines.